REU Site: Removing Barriers to Ocean Current Based Electricity Production through Undergraduate Research

This three year new Research Experiences for Undergraduates (REU) Site Program, Removing Barriers to Ocean Current Based Electricity Production through Undergraduate Research at Florida Atlantic University (FAU) will engage undergraduate students, primarily from underrepresented groups with limited access to STEM research in an exciting research experience focused on enabling the extraction of energy from ocean currents. As the world explores alternatives to fossil fuels, marine renewable resources have received increased interest due to their environmentally friendly power production potential. These energy sources are abundant in a variety of forms: ocean waves driven by winds, tides influenced by celestial/lunar forces, various gradients (like temperature and salinity), and open ocean currents. Ocean currents off the Southeast U.S. represent an untapped energy source with a technically feasible power production potential estimated at 19 GW in U.S. waters. The proposed project will utilize undergraduate research to address three areas important to the commercial scale installation of ocean current energy extraction devices: 1) resource assessment, 2) system design and reliability, and 3) environmental interactions. More than many other STEM fields, ocean renewable energy research offers undergraduate research a global, big picture perspective that encompasses coastal energy and environmental considerations. Undergraduates trained in this REU Site will understand how their projects impact the emerging ocean current based electricity production both in the U.S. and around the world.

FAU will host 10 undergraduate students for a 10 week summer program which will utilize an undergraduate research training approach that includes 1) engagement in a world-class ocean science and engineering research community; 2) participation in professional development training that prepares students for research-related career paths; 3)detailing the application that their research projects support (Ocean Current Energy); and 4) development of expertise in both lab-based computational and experimental engineering methodologies that leads to original research.